Raman Spectroscopic Studies of Guanine Nucleotide Binding Proteins

This project involves the collaboration of a biophysicist, a synthetic organic chemist, a molecular geneticist and an X-ray crystallographer in a study of guanine nucleotide binding to so called G proteins using novel techniques of Raman vibrational spectroscopy that have recently been developed. G proteins bind either GDP or GTP, which act as allosteric effectors to control protein conformation and activity, and are involved in a large number of fundamental regulatory processes. It is planned to characterize the molecular properties of the bound nucleotides, their interactions with surrounding protein residues at the active site and contrast this to their solution properties. Within the past few years there has been considerable effort and excitement on understanding a family of quanine nucleotide binding regulatory proteins, the so-called G proteins. There are several members of this family, and sub families, that are involved in a rather diverse set of biological functions. A large number are involved as intermediaries in a variety of transmembrane processes. In addition to their functional similarities, the G protein family also share common structural motifs; their sequence homology and tertiary structure similarities are one of the strongest found in biology.